ITR-[ECS]-[soc]: Spectrum Management toward Spectrum Plenty

ITR-[ECS]-[soc]: Spectrum Management toward Spectrum Plenty

Timothy Brown, University of Colorado - Boulder

Award 0428887

Abstract

Wireless networking technology is the fastest growing segment in the United States telecommunications market and holds out the promise of providing greater broadband competition, increased connectivity in rural areas, and increased communication density in developing nations that are not able to invest in wired infrastructure. But making this vision a reality entails overcoming three formidable barriers that can only be solved through careful interdisciplinary work that pulls together policy, electrical engineering, and computer science expertise. In particular, policymakers need assistance in: (1) identifying opportunities for "underlay technologies," wherein existing licensed spectrum can be protected while affording access to unlicensed uses, as well as new bands for unlicensed spectrum uses; (2) evaluating the technology - both in hardware and software - that will enable unlicensed uses not to cause undue interference with licensed ones or other unlicensed ones; and (3) determining how to best enforce the requirements - i.e., protocols (or etiquette standards) - that ensure that unlicensed uses can co-exist with one another and with licensed ones without causing undue interference.